SGER: ARTISAN - Art Inspired Service Oriented Architecture Design

This collaborative research project seeks to explore the applicability of paradigms from the art world to the science of software design. The project will build and evaluate a framework called ARTISAN for service oriented architecture by developing a new model called “Movie View” to provide an immersive and animated graphical representation for facilitating the design process for Service Oriented Architecture. This shall include “Movie-Showing,” a form of process modeling for software systems design. The project will implement a prototype to map between story-telling methods, using the Unified Modeling Language (UML) models, and movie-showing methods. An application based on ARTISAN for use in an emergency-response setting shall be implemented as proof of concept. The intellectual merit of the proposal lies in recognizing common elements of the design process in apparently disparate fields and exploring the value of adding a visually rich simulation element to the software design life cycle.

The project will incorporate design paradigms from the art and film world into the software design curriculum. A new software engineering course shall be introduced and an existing software engineering course modified for using and evaluating ARTISAN. The didactic component will feature guest lectures on design in art and film, and carefully chosen projects that experiment with incorporating enabling features of these external paradigms. The didactic component of the project will give participating students the skills necessary to be the leaders of the next generation of software system designers.